RAPID: Extreme drought legacies and watershed reconnection in the southeastern U.S.

Extreme drought can disrupt the movement of water, carbon, and nutrients among soils, groundwater, riparian areas, and streams, yet the timing and consequences of watershed recovery after drought remain difficult to predict. This RAPID project will use an ongoing drought as a time-sensitive natural experiment to determine how drought changes the storage, transformation, atmospheric release, and export of carbon in connected terrestrial and aquatic ecosystems. The work is important because drought recovery impacts stream water quality, gas emissions, ecosystem function, and water-resource planning. At a time when many regions face increasing water demand and expanding energy and data infrastructure, this project serves the national interest through improved understanding of drought recovery and regional water-resource resilience. Drought can threaten food and water supplies, streamflow, groundwater, water quality, and community well-being. This project will help identify when soils, groundwater, and streams reconnect after drought and when carbon and nutrients stored during drought are retained, transformed, released to the atmosphere, or transported to streams. The project will use AI and machine-learning tools to combine field measurements, geophysical data, remote sensing, gas measurements, and water chemistry data to determine which indicators best predict post-drought recovery of watershed connectivity and processing. These outcomes will advance watershed science and support energy-water security and water-resource planning. It will also strengthen the STEM workforce with interdisciplinary training of students and technicians in field hydrology, biogeochemistry, geophysics, laboratory analysis, remote sensing, and applications of machine learning.

This RAPID project will advance watershed biogeochemistry by addressing a central knowledge gap in how drought changes the fate of carbon as water is stored, redistributed, and reconnected across linked soils, groundwater, streams, and the atmosphere. Drought can separate carbon sources from transport pathways, allowing organic matter and nutrients to accumulate, transform, or become physically protected in soils and riparian areas. When rainfall returns, these stored materials may remain isolated, be mineralized in place, move slowly through shallow groundwater, flush rapidly to streams, or be released as carbon dioxide or methane. The research will test how drought persistence and rewetting reorganize soil-groundwater-stream connectivity, what forms of carbon accumulate or transform during dry periods, and which rainfall, soil-moisture, redox, and groundwater thresholds determine whether carbon delivery is muted, delayed, or amplified during recovery. Repeated transect measurements, storm-event sampling, laboratory rewetting experiments, electrical resistivity tomography, remote sensing, gas measurements, and soil and water chemistry will be combined to link hydrologic reconnection with carbon storage, transformation, atmospheric exchange, and stream export. AI and machine-learning tools will be used to integrate these datasets and identify the strongest predictors of recovery, including rainfall, soil moisture, groundwater depth, redox state, streamflow return, and carbon and nutrient release. In doing so, the project will support development of a transferable framework for predicting when drought legacies persist, when watersheds reconnect, and when post-drought carbon and water-quality responses are most likely to occur.